IEEE Dependable Systems and Networks Conference: Student Travel Support

This award will support student travel for participation in the 2010 International Conference on Dependable Systems and Networks. Traveling to this conference and participating in the conference activities will foster development of skilled researchers in this field which is of national interest.